CEDAR Data Base

This is to support activities related to the transition of the CEDAR database from The National Center for Atmospheric Research (NCAR) High Altitude Observatory (HAO) to MIT Millstone Hill.